1995 NSF Engineering Education Coalitions Assessment Conference

ABSTRACT 1995 Engineering Education Coalitions Assessment Conference P.I.: Dr. Gloria M. Rogers Rose-Hulman Institute of Technology, a member of the Foundation Engineering Edu- cation Coalition, proposes to organize and conduct a conference for assessment team members, campus coordinators, and project directors of the eight Engineering Educa- tion Coalitions. The conference will feature presentations by experts in the assessment and evaluation of educational innovations and their impact on students. These will be followed by small-group working sessions in which participants develop strategies for applying improved assessment techniques within their own Coalitions and educational institutions. Approximately 80 participants are expected. The outcome of the confer- ence will be a set of improved assessment strategies, which will be documented in a re- port to be broadly distributed throughout the Coalitions. This proposed activity has been encouraged by NSF staff and will be of significant benedit to the Engineering Education Coalitions Program.